Oceanographic Instrumentation R/V CAPE HATTERAS

0097166
Ustach
This award to Duke University on behalf of the Duke/UNC Oceanographic Consortium provides instrumentation to update and expand the oceanographic research capabilities of the research vessel Cape Hatteras, a ship operated by DUNCOC as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. The acoustic Doppler current profiler, salinometer, echosounder upgrades and water sampling bottles will all be available as shared-use tools for all scientific users of the research ship. These improvements will be of substantial advantage to marine scientists using the ship in their research during 2001 and future years.
***